Construction of Multi-Purpose Housing at Mount Desert Island Biological Laboratory

The Mount Desert Island Biological Laboratory (MDIBL) will construct a multi-use housing facility. MDIBL provides access for visiting Investigators to marine species for the purpose of investigating mechanisms of basic processes such as osmoregulation, cell division, reproduction and the function of vertebrate organs like the kidney, heart and brain; and offers educational programs for students ranging from high school to postdoctoral. The Laboratory hosts Investigators and students from the U.S., Canada and Europe who are actively recruited through a variety of fellowship programs. The ability of MDIBL to accommodate these diverse groups is currently limited by the quality and quantity of available housing, in particular housing for Investigators seeking short stays at the Lab and for students during our peak season. The long-term goal of the proposed activity is to create a set of at least four housing units designed to be utilized by students, Investigators or teacher/student groups at different times of the year. The current application seeks support for the first of these units. The site proposed for these units was chosen on the basis of a comprehensive site-planning process undertaken by MDIBL in collaboration with professional planner and offers privacy and accessibility while minimizing development costs. The design of the units was chosen to maximize flexibility of current and future use, economy of construction and harmony with the surrounding land and community. The unit will be insulated and heated to provide much needed accommodations in the colder months. The housing unit will benefit both students and Investigators by providing summer student housing which is safer and more accommodating and allow MDIBL to house visiting Investigators who come for short stays to collect samples or attend conferences or short courses.